SBIR Phase II: Thermal Runaway Protection and Suppression for Lithium-Ion Batteries

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is to address fire and explosion safety hazards associated with lithium ion (Li-ion) battery energy storage technologies. Fueled by growth in the energy storage and electric vehicle industries, the Li-ion battery market is expected to grow to a size of several hundred billion dollars by 2025. Future viability of these clean energy technologies are dependent on Li-ion battery technology. However, Li-ion batteries occasionally catastrophically fail, posing thermal hazards as serious as fires and explosions. The proposed technology has the potential to be an effective, low cost solution and accelerating adoption of transformative clean energy technologies.

This SBIR Phase I project proposes to improve the safety of Li-ion bateries. Under certain scenarios, Li-ion batteries can fail, resulting in an exothermic release of flammable and toxic gases. For applications including large multi-cell battery systems in energy storage and vehicle use, the risk of thermal runaway can result in catastrophic fires, explosions and toxic gas release that can damage nearby infrastructure and cause injury or death. Thermal runaway poses significant challenges for available suppression and mitigation systems because the hazardous gas release can continue despite suppression of the incipient fire. The proposed thermal runaway protection and suppression technology addresses the source of the hazards by exploiting a series of novel physio-chemical processes to reduce flammable and toxic gas species concentrations released during a thermal runaway event.